Functional Inactivation of a DNA Repair Protein Complex

9302889 Marinus Errors of DNA replication are potentially a major source of spontaneous and drug induced mutation. Repair systems exist to minimize such damage. The best understood is DNA adenine methylation (Dam) directed mismatch repair in Escherichia coli. Among the proteins involved in this repair system, three (MutH, MutL and MutS) are of particular importance. These three proteins appear to form a complex in vivo with DNA containing a replication error. MutL and MutS protein homologs have been detected in other bacteria, yeast, mouse and man indicating that the same basic repair mechanism is used. This work is defining, in E. coli, how the MutL protein interacts with the other Mut proteins (MutS and MutH) using genetic methods coupled with biochemical assays. Dominant negative mutations in the mutL gene will be selected by a newfangled procedure and will be mapped by DNA sequencing. The mutants will be sorted into different classes by their ability to be complemented in trans by MutS, MutH and MutL. Partially purified MutL from representative mutants will be assayed in vitro for ability to assemble and form a complex (MutH, L, S,) capable of incising DNA. This will test for the ability to associate with and activate MutH endonuclease activity. We will also test for the ability to interact with MutS using DNAse I protection assays ("footprinting"). These biochemical assays will then allow correlations to be made between location of the mutation in the gene and functional activity of protein domains. %%% This research represents a way not only to increase our knowledge about how mutations are prevented but also to understand in general how proteins assemble into functional complexes, ***